The Control of Time-Varying Singular Systems: Theory and Application

There is interest in developing a comprehensive control theory for the class of linear time-varying singular systems. To date, all existing results relating to the control of linear systems described by differential equations apply exclusively to regular systems, both time-invariant and time-varying and to time-invariant singular systems. The stage is now set for bringing together the various methodologies popular in the control literature for the purpose of investigating control problems associated with time- varying singular systems. There is intention to exploit the available body of work pertaining to fundamental issues such as existence and uniqueness of solutions, canonical forms, controllability, observability, stabilization, state feedback, state estimation, and dynamic feedback, extending these notions to the time- varying singular setting. There are many important instances where the most natural way to view a real-world control problem is in the time-varying singular context. Hence, a rigorous theoretical framework for handling such situations will be investigated.